Low Field MRI with SQUIDs

9360262 Kumar This Phase I SBIR project is to determine the feasibility of applying the high detection sensitivity of SQUID technology to the development of a very low magnetic field strength magnetic resonance imaging (MRI) system for medical applications. It is hypothesized that the system would provide a diagnostic imaging quality system at low cost compared to conventional MRI systems. ***